Metal Complexes of Donor-Bridge-Acceptor Biradical Ligands: From Nanoscopic Electron Correlation to Inhibition of Back Electron Transfer

The Inorganic, Bioinorganic, and Organometallic Chemistry Program supports the efforts of Professor David A. Shultz of North Carolina State University for the examination of electron transfer and electron transport. The research group determines long-range intramolecular electron correlations modulated by ancillary ligand effects, synthesizes donor-bridge-acceptor biradical ligands with new bridges and investigates lifetimes and thermal stabilities of photoinduced valence tautomerism in various compounds. The PI has developed laboratory experiments on magnetochemistry and group theory and these will be incorporated into an "in-house" and a public textbook. He mentors a large percentage of African American and women students.